Mathematical Sciences: Carter Subgroups and Characters of Finite Solvable Groups

This project is concerned with the study of a unique basis for the complex valued class functions defined on the Carter classes of a finite solvable group that behave the same way as the irreducible Brauer characters do in a p-solvable group. The principal investigator will address a similar question for System Normalizers. This research is in the general area of the representation theory of finite groups. One of the main applications of group representation theory.